Optical and Kinetic Studies of Quantum Gases

***
9803180
Kennedy
A program of theoretical investigation into the quantum physics of ultracold, trapped alkai gases is initiated. The three main line of investigation concern kinetic evolution and condensation of cooled gases, spatio-temporal manifestati0ons of quantum coherence in traps and light scattering from non-condensed quantum gases.
***